PECASE: In Situ Measurements of Halogen Oxides in the Troposphere and Enhancement of Graduate Education in Atmospheric Sciences

This project is a CAREER award involving research into the role of halogen oxides in tropospheric chemistry and the development of innovative coursework in atmospheric and oceanic sciences. An in-situ instrument employing a low-pressure chemical conversion/resonance fluorescence technique will be deployed to sites in the boundary layer and free troposphere with the goal of detecting BrO and ClO under a variety of environmental and meteorological conditions. These observations will provide insight into the potential for halogen chemistry to impact the atmospheric cycling of NOx, HOx, and a variety of reactive hydrocarbons. The new courses to be developed are: 1) an inquiry-based laboratory course involving practical experimental work, and 2) a seminar-style professional development course involving speakers from industry, government, and educational communities.